Travel to the XIXth International Congress on Mathematical Physics, July 23--28, 2018, Montreal, Canada, and to Related Events

This award provides funding for US participation in the conference "The XIXth International Conference on Mathematical Physics" that will be held in Montreal, Canada, 2018 from June 23-28, 2018.

The conference focuses on recent developments in Analysis, especially in the field of mathematical physics. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF and the like an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at:
https://icmp2018.org/